Group Travel for U.S. Participants in XIIth World Congress of Sociology, to be held in Madrid, Spain, July 9-13, 1990

Important international meetings among social scientists provide vital opportunities for enriching the research endeavors of all countries represented. More and more problems of basic and applied research have implications for the role of the United States in the world. At this point, dialogue between Western and Eastern European and Russian sociologists is especially promising for the development of collaborative efforts. This grant will provide partial support for a highly selected group of American sociologists playing significant roles in The Twelfth World Congress of Sociology, to be held in Madrid, Spain, July 9-13, 1990. Held once every four years, the Congress is a function of the International Sociological Association and draws over 4,000 sociologists, approximately 20% of whom are American. The recipient of these funds, the American Sociological Association, will, through a special committee, conduct the competition for individual awards and distribute the travel grants to those who most merit them. To be eligible, sociologists need only have a paper accepted for presentation or have a significant role on the program. Among those eligible, the selection criteria to be employed include the intrinsic merit of the paper, the significance of the paper as an U.S. contribution within the program to which it is submitted, and the qualifications of the applicant. Attention will also be given to balance among participants of various ages, genders and racial/ethnic groups.